Criteria for Selecting Base Isolation - Phase II

Base isolation, under certain conditions is an attractive strategy for mitigation of the efforts of earthquakes. At this time, worldwide interest in the concept is at a very high level. This research project directs its efforts toward developing quantitative data for use in a design methodology for selection of base isolation systems for use in structures. The research uses previously developed quantitative research results as a fundamental data base. The results of the research will be applied to typical structures in order that the design methodology of system selection system and structure response and system construction considerations can be established for use in the final design process.